Pacific Symposium on Biocomputing '98 Conference, January 4-9, 1998, Maui, Hawaii

The third Pacific Symposium on Biocomputing (PSB), will be held January 4-9, 1998 in Maui, Hawaii. PSB brings together top researchers from North America, the Asian Pacific nations, Europe and around the world to exchange research results and address open issues in all aspects of computational biology. PSB provides a forum for the presentation of work in databases, algorithms, interfaces, visualization, modeling and other computational methods, as applied to biological problems, with emphasis on applications in data-rich areas of molecular biology. PSB attracts a balanced combination of computer scientists and biologists, presenting significant original research, demonstrating computer systems, and facilitating formal and informal discussions on topics of importance to computational biology. Papers and presentations are rigorously peer reviewed and are published in an archival proceedings volume which will be indexed in Medline by the National Library of Medicine. PSB is designed to be maximally responsive to the need for critical mass in subdisciplines within biocomputing. For that reason, it is the only meeting whose sessions are defined dynamically in response to specific proposals each year, organized by leaders in emerging subdisciplines and targeted to provide a forum for publication and discussion of research in biocomputing's "hot area". This proposal is to be specifically used for funding participation and to provide a computing environment an internet connection locally for the conference.